A Planning Visit to Seoul, Korea, for Cooperative Research: Impact of Particle Transport in Soils on Filter Performance

9602188 Reddi This award provides funds to permit Dr. Lakshmi N. Reddi, Department of Civil Engineering, Kansas State University, to make a short-term visit to Korea to finalize plans with Dr. In-Mo Lee, Department of Civil Engineering, Korea University, for cooperative research to assess the impact of particle transport on filter performance under realistic in-situ conditions. During the one-week visit, the collaborators expect to (1) gather field information on which to develop the experimental basis of future research, (2) observe the placement of filters and overall construction procedures as an aid to understanding discrepancies between field observations and laboratory results, (3) formulate assumptions for the modeling component of the proposed research project, and (4) prepare an outline of the modeling and experimental components of the proposed research for review by tunneling industry consultants and by KOSEF prior to submission of a formal proposal to NSF and KOSEF. A number of soil structures, both above ground and subsurface, require filters for protection against erosion and piping. Fine particle accumulation in filters leads to buildup of pore pressure which can be large enough to cause damage to such structures as retaining walls, dams, and tunnels adjacent to the clogged filters. Field conditions in the subway system in Seoul, Korea, offer an excellent opportunity to test the fundamental particle transport models currently being developed by the PI. The proposed collaborators have considerable experience in the field of the proposed research. This project is relevant to the objectives of the U.S.-Korea Program which seeks to increase the level of cooperation between U.S. and Korean scientists and engineers through the exchange of scientific information, ideas, skills, and techniques and through collaboration on problems of mutual interest and benefit. ***